NSF-CONACyT: The Intelligent Observer: A Tool for Collaborative Experimental Research Among Geographically Dispersed Groups

This award in the CONACyT Initiative funds a joint research project between two groups: the Robotics Laboratory of the Department of Computer Science at Stanford University and the Center for Artificial Intelligence at ITESM in Monterrey (Mexico). There have been several mutually beneficial exchanges (visits, courses, research) between these two groups over the last four years. The purpose of this project to expand this cooperation, not only in basic research, but also on applications such as manufacturing and robot-assisted surgery. The technical goal of this project is to integrate object-tracking techniques from computer vision and motion-planning techniques from robotics, in order to build a new tool, called the Intelligent Observer (IO for short), that will facilitate collaborative experimental research among geographically dispersed groups. While this project builds upon the two groups' strength in vision, planning, control, and robotics, the resulting Intelligent Observer will be a tool to enhance their future research capabilities in these domains. This tool will be used interactively by people at one or several geographical locations to observe and participate in an experiment implemented at another site. The hardware of the IO will consist of one or more vision sensors mounted on mobile platforms available at the experimental site. The software of the IO will accept high-level commands input by the users on their workstations, plan and control the motions of the platforms to allow the vision sensors to acquire enough visual information to meet the users' requests, apply image understanding techniques to extract information pertinent to the users' requests, and for each user, provide a pertinent graphic rendering of the experimental scene on a display. In addition to facilitating remote collaborations in research, the IO technologies should also benefit operations such as telepresence, teleconferencing, surveillance, and interactive TV.